CS For All:RPP - Booting Up Computer Science in Wyoming

Wyoming recently mandated that computer science instruction be provided in K-12 schools by 2022, and there is an urgent need for designing instruction that can integrate computer science into the teaching of other subjects. This project assembles a network improvement community comprised of partners from the University of Wyoming, community colleges, Wyoming school districts, the Wyoming Library System, the Wyoming Department of Education, and local software development firms. The community meets once monthly over the duration of the project to collaborate stakeholder agendas for meeting the project goals. The community enlists K-8 teachers from across the state to experience professional development and collaborate on integrating computer science into their instruction of STEM and social science topics. The project is producing units for teachers, who are implementing these units with support from master teachers and educational scholars. The community serves as a forum for teachers to debrief and learn from each other about ways to improve their instruction and design of the curricular units. Libraries in the state system act as partners for dissemination to rural areas of the innovative instructional approaches.

This project is preparing 150 K-8 teachers and state librarians from all disciplines to integrate computer science into their teaching. The project is reaching almost half of all K-8 students in Wyoming. The research questions address how teachers use modeling practices as supports for student understanding of algorithms and coding in a variety of ways. The curricula involve cyber security as well as other topics relevant to measurement in mathematics and social studies topics that involve social concerns like voting. Data sources include teacher lesson plans and recordings of their instructional implementation, scoring of each of these according to a rubric, meeting notes of monthly meetings, and results from pre-post student assessments. Evaluation focuses on the meeting of project goals and the quality of the management of the network improvement community. This project is jointly funded by CS for All and the Established Program to Stimulate Competitive Research (EPSCoR).